Multiscale Simulation of Defects and Shear Localization in Metallic Glasses

0084886
This research addresses one of the long outstanding
fundamental problems in metallic glasses: microscopic mechanisms of
deformation. Metallic glass deforms in highly localized zones called
shear bands. The inability to spread the local deformation
is the dominant factor affecting the fracture strength, toughness,
and widespread applications of amorphous metals. The aim of this
work is to search and identify defects that promote
deformation in amorphous metals. To answer the challenges
posed by the lack of long-range order in amorphous materials, we plan
to use extensive, multiscale computer simulations.
We will develop algorithms to characterize free volumes,
non-equilibrium simulation methods to model local heat dissipation,
techniques to identify extended defects such as dislocations,
and finally, development of stochastic dynamic method to model
shear band propagation on mesoscopic scale. We expect the
knowledge generated from the multiscale simulations to lay a
foundation for the future development of theoretical models,
and provide guidance to experiments in synthesis, testing
and application of metallic glasses and their composites